Electromembrane Process for Recovery of Lead from Contaminated Soils

This research focuses on the feasibility of an electrochemical process for recovering lead from soil that has been contaminated with lead. The process to be investigated involves use of chelating agents and an electromembrane for separation of lead and recovery of the chelating agent.